Expression Characteristics of Spinach Fructose-1,6-Bisphosphatases

EXPRESSION OF SPINACH FRUCTOSE 1,6 BISPHOSPHATASES Starch and sucrose are the principal stable products formed in the leaf tissue from the carbon fixed during photosynthesis. Starch is synthesized and stored in the chloroplast during the day, and degraded at night when the plant cell needs carbon fragments for respiration and other metabolic processes. Sucrose is the major transport form of reduced carbon and is exported from leaves to other parts of the plant. It is synthesized in the cytosol from triose phosphate, which is the main form of reduced carbon exported from the chloroplast during active photosynthesizing periods. These processes require fructose 1,6 bisphosphatase; in both cases the enzyme catalyses the hydrolysis of fructose 1,6 bisphosphate to fructose 6 phosphate and inorganic phosphate. These isozymes are localized in different compartments of the plant cell, differ in molecular structure, kinetics and regulation and are thought to be coded by nuclear genes. The aims of this research project are: (1) to isolate and characterize cDNA clones encoding cytoplasmic and chloroplast fructose 1,6 bisphosphatases from spinach; (2) to study the differential light regulated expression characteristics of the genes; (3) to utilize fructose 1,6, bisphosphatase recombinant DNA and antibody probes to study the expression of fructose 1,6 bisphosphatase mRNAs and polypeptides during the photosynthetic process. The results of these studies will provide understanding of the different structural and expression characteristics of two forms of an enzyme which plays a role in photosynthetic carbon fixation and partitioning in higher plants, the determinants of plant productivity.